Anaerobic Transformation of Homocyclic and Heterocyclic Aromatic Hydrocarbons and the Implications to Contaminated Ground Water Aquifers

The objective of this project is to study anaerobic microbial transformation of aromatic hydrocarbons in laboratory microcosms derived from subsurface material. The substrates to be used in this research are homocyclic aromatic hydrocarbons (mononuclear and binuclear), and nitrogen, sulfur, and oxygen heterocycles. The main thrust of the research is on studying the rates and extent of transformation of the model compounds (as single substrates, or in mixtures) under denitrifying, sulfate-reducing, fermentative, and transient aerobic/anaerobic conditions. The experiments will be carried out in batch and semicontinuously fed column microcosms derived from subsurface material. Pathways of transformations will also be followed, and for this purpose chromatographic-mass spectrometric techniques and radioactive carbon labeling of the substrates will be used. Routes and kinetics of anaerobic transformation with different electron acceptors will be investigated in the context of changing environmental conditions; varying pH, nutrients, presence and absence of other organic carbon and energy sources, and influence of other aromatic hydrocarbons in mixtures. Biodegradation of compounds to be studied in this project are generally possible under aerobic conditions. It is not always feasible to introduce sufficient aeration into contaminated sites, and the degree of anaerobicity usually increases with the degree of pollution by degradable organic matter. Results of this project may provide the basis for an alternative process to decontaminate aquifers that are contaminated by aromatic hydrocarbons.